Cooperative Research in Sub-Saharan Africa on Oxygen Isotope Ratios in Freshwater Gastropods as Paleoclimatic Indicators

This proposal requests supplemental funds for NSF Grant No. EAR8416071 to permit Dr. Paul I. Abell, Professor of Chemistry, University of Rhode Island, to pursue with Dr. Christine Betterton, Bayero University, Nigeria, Dr. H. V. Clarke, University of Zimbabwe, and other scientists in Sub-Saharan Africa, for a period of 6 months, a program of cooperative research on oxygen isotope ratios in freshwater gastropods as a paleoclimatic indicator. Samples of modern gastropod shells and their aqueous environments will be studied first to provide base line data. The technique then will be applied to selected fossil gastropods in studies of paleoenvironments from a variety of locations in Sub-Saharan Africa. Freshwater gastropods record environmental information in the stable oxygen isotope ratios of their shells. This information includes a sensitivity toward temperature in the decomposition of the calcium carbonate of the shell as well as evaporative effects stemming from the host body of water in which the gastropod lived. This study may provide additional insights into paleoenvironments. This project is relevant to the objectives of the Science in Developing Countries Program which seeks to increase the level of cooperation between U.S. scientists and engineers and their counterparts in developing countries through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit.